U.S.-Korea Cooperative Research: The Glass Transition and Aging Phenomena in Sugars

INT-026824
Herman Cummins, CUNY City College
$31,350

This project is to perform research collaboration with researchers in Korea on a research project investigating the liquid-glass transition in several sugars and physical aging following a rapid temparture quench from avobe the glass-transition temperature to below it.